Expansion and Operation of the GULFNET Geodetic Reference Network Along the Northern Coast of the Gulf of Mexico

In 1997, Louisiana State University began construction of GULFNET, a geodetic system
consisting of continually operating reference stations and episodic campaign targets.
Originally built to support high precision measurement of subsidence and lateral normal
fault related strain, the system was also designed to support geodetic-quality
positioning. This system currently consists of four continuously operating stations and 24
episodic campaign targets and is supported by contracts with the National Science
Foundation (NSF-EAR 9725330) and the Louisiana Board of Regents. The continuously
operating stations will soon become certified by the National Geodetic Survey (NGS) as
official parts of the Continuously Operating Reference System or CORS, that supports the
National Spatial Reference System (NSRS). Funds originating from US Army Corps of
Engineers (New Orleans District) through this proposed contract will permit the expansion
of GULFNET by adding three additional continuously operating sites and the infrastructure
to continue operation of the network. This new part of the system will come on line in
early 2002 and will provide near complete coverage of the Louisiana coast.